REU Site - Hybrid Synthesis of Advanced 3D Structures

This award provides funding to Milwaukee School of Engineering (MSOE) for the support of a renewal five-year, REU Site entitled "Undergraduate Research: Hybrid Synthesis of Advanced 3D Structures," under the direction of Dr. Subha K. Kumpaty. This ten-week summer program will involve nine students annually in research in areas in hybrid synthesis and fabrication working closely with undergraduate and graduate students in MSOE's exciting Centers of Excellence. A broad mix of students, typically 50% women and 25-30% underrepresented minorities, from other institutions programs will be recruited for the program.